Studies of Hadronic Structure of Matter

This award covers experimental elementary particle physics research on the constituent structure of matter by a group at Penn State University in collaboration with other NSF and DOE supported scientists. The group will continue studying rare mesonic and hadronic states at Brookhaven and at Fermilab. They will also study the quark structure of matter in electron scattering experiments at HERA in Hamburg, Germany.